Persistence in Science of High Ability Minority Students, Phase III: Booklet for Prospective MSE Students

In 1985 and 1986, the Educational Testing Service (ETS) conducted a study to determine the persistence of minority students in the study of mathematics, engineering, and scientific in college. These students were selected because they had indicated that they wanted to major in MSE fields and had scored 550 or better on their SAT (Math). In 1897, ETS sent a questionnaire to the approximately 5,000 students who had persisted in their field of initial choice and asked: "What advice would you give to boys and girls just starting high school, if they want to succeed in college as math, science, engineering or premed majors, and pursue careers in MSE fields?" The response of the students was enthusiastic, and ETS found an unusual amount of wisdom in the advice. This project will allow for the production and dissemination of a booklet containing the responses from the minority students. The ETS has analyzed the responses, and constructed a set of code catagories. The advice of the older students will be selected so that all five catagories are represented. The booklet will be distributed to high schools in the United States.//